Designing Functional and Active Substrates based on Nanoscale Heterostructures

Professor Teri W. Odom of Northwestern University is studying the design of smart substrates whose properties are determined by the unique placement of metallic and semiconducting nanomaterials. By first defining nanoparticle building blocks by top-down nanofabrication and then carrying out bottom-up chemistry, new combinations of nanomaterials can be made that could not be made otherwise. Such responsive substrates can enable advances in next-generation electrochemical devices, microelectronics, and sensor designs that are critical for energy and health applications. Moreover, the studies can result in reduced manufacturing and processing times while also producing multi-faceted and sophisticated substrate properties. Middle-school and high-school students will have the opportunity to prepare functional substrates with nanoscale structures using scalable patterning methods.

Professor Teri W. Odom of Northwestern University is developing methods to prepare functional and active substrates based on nanoscale heterostructures. Nanoparticle seeds supported on responsive substrates will function as templates to grow anisotropic metallic and semiconducting features with precision down to 1 nm. This materials-modular platform will exploit the effects of substrates as structural supports as well as conducting surfaces to realize new classes of heterostructures that can advance fundamental insight in light-matter interactions and electrochemical processes.